Nuclear, Nonlinear, and Optics Laboratory Enhancement

This project is improving both quantitatively and qualitatively the nuclear physics laboratory and to a lesser extent, the nonlinear and optics experiments, at California State Polytechnic University-Pomona. The quantitative aspect of the improvement is needed due to the increase in the number of physics majors at the University. The qualitative aspect involves using computers to interface with equipment, which will allow faculty to add novel experiments to the existing program. Computers also are being used by students for numerical simulations of nonlinear phenomena.NSF funds are being matched with funds from non-federal sources.